A Dynamic Analysis of the Crankshaft-Block System in an Internal Combustion Engine Including the Elastohydrodynamic Behavior of the Main Bearings

This GOALI project is a collaborative research and educational effort between the University of Michigan and the General Motors Research and Development Center. It targets the general area of simulating the vibration and noise performance of an operating engine, leading to design changes for noise reduction. The specific research focus is on developing an analytical tool for predicting the dynamic response of an engine crankshaft-block system including the oil-film hydrodynamics. Previous work on dynamic reduction and lubrication constitutes the foundation of this effort. The fundamental research concentrates in the areas of developing a dynamic substructuring methodology for capturing the local flexibility of the cap and bulkhead of the block dynamics, developing a new perturbation technique for solving the oil- film Reynolds equation, developing a computational efficient solution for the electrohydro dynamics (EHD) lubrication problem, and developing a crankshaft-block-oil film coupling algorithm. Applied research is performed in parallel by General Motors Research and Development Center in applying dynamic reduction to crankshaft and block dynamics, including the local flexibility of the bearing caps and engine bulkheads, utilizing a `hourglass control` method for developing the oil-film fluidicity matrices, and performing the numerical implementation and validation for the crankshaft-block-oil film coupling algorithm. The educational objectives are identivied in the ara of joint advising, introducing new technology into the University curriculum, and developing a short course for engineers in the Industry. Substantial investment in the part of General Motors is included in the proposed work in terms of the paralled applied research effort, performing testing for validation, time allocation for joint advising, and collaboration in achieving all the educational objectives.